PISCES-A&I: Partners in Securing Cyberspace through Education and Service-Module Adaptation and Implementation

Computer Science (31) The George Washington University (GW) in collaboration with students and professors from two universities with long histories of serving traditionally underrepresented groups, Gallaudet University (for deaf, hard of hearing, and hearing students and faculty) and Marymount University (until 1986 a women's college that still has 70% women in its student population) are partners in this project. Modules that adapt case studies, laboratory exercises and problems used at other institutions (West Point, Iowa State, and the NSF ethics project) to present Computer Security Information Assurance (CSIA) topics are the focus of this project. What makes these modules unique are their portability, extensibility, and flexibility for integration into courses at various levels. The modules are used and evaluated in actual courses at the three Washington area universities participating in Project PISCES, an endeavor that provides opportunities for students to become CSIA professionals.